Planning Grant - National Alliance of Presidential Awardees Association

9617438 Watson This planning grant requests funding to enable a new alliance, the National Alliance of Presidential Awardees Associations (NAPAA) to design activities, develop a mission, and become an active advocate for excellence in mathematics and science teaching in the national arena. NAPAA proposes to conduct four broad categories of activities: 1. Survey to previous awardees. The purpose of the survey is to determine current address, current position , and track experiences since the Awardee's selection. 2. Organizational and Planning Meeting of NAPAA Executive Board. This activity will permit the fledging organization to develop a mission, adopt procedures, and develop processes for identifying a Chief Executive Officer. 3. Design an "event" that brings together current and past Awardees that is directed toward ongoing professional development. 4. Design an electronic database and Web Page for the NAPAA.